Travel Funds for U.S. Attendees to the Tenth World Conference on Earthquake Engineering to be held in Madrid, Spain on July 19-24, 1992

This project will provide travel support for a U.S. Delegation of highly qualified earthquake engineering researchers to attend and participate in the 10th World Conference on Earthquake Engineering (10WCEE), July 19-24. 1992, in Madrid, Spain. As recognized leaders in the field of earthquake engineering, U.S. investigators supported by this project will present results of their current research work at this important international forum.